Research Initiation: Fundamental Studies & Device Applications of Superconductors at Rf, Microwave & MM-Wave Frequencies (REU Supplement)

This Research Initiation Award focusses on high frequency electromagnetic studies of high-transition-temperature superconductors, between frequencies covering "dc" to 75 GHz. The proposed work involves: (1) Fundamental studies of the electromagnetic response via measurements of the surface resistance and the penetration depth as functions of temperature, frequency and applied magnetic field. The results will be interpreted to yield fundamental information regarding the nature of the superconducting state, and the dynamics of vortices and fluxoids in these materials. (2) Materials fabrication and processing in bulk monolithic, single crystal forms and also coatings. The effects of materials processing on the ideal high frequency response of the superconductors will be studied. (3) Fabrication and testing of devices in bulk monolithic and coated forms. The specific devices that will be studied are: high Q fully superconducting cavities at microwave and mmwave frequencies, interdigital filters, and waveguides at X-band and higher frequencies. the device performance will be determined, correlated with expected ideal estimates, and the effects of materials processing will be examined.